Pressure Swing Membrane Absorption-Permeation Separation of VOCs From Nitrogen

Pressure swing membrane absorption-permeation (PSMABP) is to be demonstrated and examined for the removal of volatile organic compounds (VOCs) in this SGER project. In PSMABP, air or N2 containing VOCs will be introduced into a hollow fiber module and separated by a cyclic process. VOCs in N2/air will selectively permeate the walls of one set of microporous hollow feed fibers, absorb into an inert high boiling mineral oil, and then emerge into a second set of evacuated strip fibers. This project can help industry and government to address the cleanup of VOC contaminated air streams mandated by the Clean Air Act. The technique to be explored is expected to overcome certain problems with current technologies.